REU Site: A Complete Mathematical Research Experience

The Grand Valley State University Research Experiences for Undergraduates (REU) program will provide undergraduate students with a complete mathematical research experience. This involves problem selection,
literature searches, background work, the work on the research problem itself, learning about research in areas of mathematics other than an individual's particular problem area, and dissemination of results through writing and giving presentations. To help achieve these goals, we will build a community of students and faculty, supporting students to make a gradual transition to intellectual independence. Students in the program will collaborate with nationally recognized mathematics professors who have a history of success in research projects with undergraduates. For the REU in the summer of 2002, research areas will be chosen from fractal geometry, distance geometry, topology, differential games, dynamical systems, and wavelets.